Collaborative Research: Global Phytogeography of the Early/Late Carboniferous Boundary Based on Spores and Pollen

9418424 Raymond Paleophytogeography, the study of the distribution of ancient land plants, helps us to understand the nature of ancient climate change and how climate change affects land-plant diversity. The data for paleophytogeography studies come from two sources: macrofloral assemblages (accumulations of fossil leaves, stems, seeds and other plant parts) and spore-pollen assemblages. Compared to macrofloral assemblages, spore-pollen assemblages are easier to assign to narrow intervals of geologic time, have higher generic and species diversity, and may derive from a wider range of habitats (particularly more arid habitats). These factors suggest that spore-pollen data should yield detailed and accurate phytogeographies; however studies of spore-pollen and macrofloral phytogeography for the same interval seldom produce congruent results. This proposal seeks funding to compile a mid-Carboniferous (333 to 315 Ma) spore-pollen database, identify and apply appropriate multivariate statistical techniques (including the Raup-Crick probabilistic similarity index, cluster analysis, and ordination techniques such as multidimensional scaling and reciprocal averaging analysis) for the phytogeographic analysis of spore-pollen data, and to complete phytogeographic studies of the mid-Carboniferous Eumorphoceras-, Homoceras-, Reticuloceras-, and Cancelloceras (G1)-goniatite zones (Namurian A through C). Completion of this work will require detailed knowledge of North American spore-pollen assemblages during the mid-Carboniferous. Thus, spore-pollen assemblages from the mid-Carboniferous of Kentucky, Alabama, Utah, and perhaps Nevada will be collected, studied, and described as a part of this project. This will result in an improved spore-pollen biostratigraphic zonation for North America during the mid-Carboniferous, and improved global correlation for this interval. The study interval includes the Early/Late Caroniferous boundary and coincides with the Laurussia-Gondwana collision as well as glacial onset in the Southern Hemisphere, high-latitude cooling in the Northern and Southern Hemispheres, and perhaps mid-latitude and equatorial climate change as well. The results will establish the nature and timing of equatorial and mid-latitude climate change, yield insight into the development of ever-wet, ever-warm equatorial and dry mid-latitude floral communities as a result of glacial onset and/or continental collision, and document the effect of glaciation and continental collision on land-plant diversity.